Assessing Crustal Assimilation In The Petrogenesis Of Columbia River Basalt: Plagioclase 87Sr/86Sr Stratigraphy

Wolff
EAR-0125986

Assessing the relative contributions of enriched mantle and continental crust to
continental flood basalt lavas is a long-standing problem, because essentially the same
whole-rock geochemical data can be used to argue for either case. We propose a test
using the Columbia River Basalt Group, the best-studied flood basalt province in the
world. We shall use laser ablation sampling in combination with multicollector
inductively coupled plasma mass spectrometry (MC-ICP-MS) to establish whether or not
plagioclase phenocrysts in CRBG lavas exhibit zoning in 87 Sr/ 86 Sr. Because plagioclase
crystallizes from basaltic liquids at crustal pressures, this will establish whether or not the
magmas experienced changes in Sr isotope ratio during residence in (or transport
through) the crust. While laser ablation MC-ICP-MS for in-situ isotope ratio analysis is
not yet a fully developed technique, Sr in plagioclase has been demonstrated as feasible,
and presents relatively few analytical challenges. This research has the potential to place
unequivocal spatial constaints on the depth at which lithosperic contamination has
affected the compositions of the Columbia River lavas. The results will affect our
understanding of mantle plume-lithosphere interactions during genesis of this flood basalt
province.